A Data Storage and Retrieval System for the National Information Service for Earthquake Engineering (NISEE)

Much new information is being produced by the earthquake hazard reduction research community and novel approaches are needed to facilitate its dissemination and utilization by practitioners and researchers. This project will design, develop, and produce a prototype data storage and retrieval system which will accomodate pages of text, line drawings, and continuous tone images. The system will accept search requests in the form of a sequence of keywords which can be associated with one another using logical connectives such as "and", "or", "but not", etc. and will produce, in response to each request, a list of the accession numbers, or possible page and word numbers, of those documents satisfying the request. The reading system will then present to the user, on a high resolution display, an image of the required documents, a page at a time, for review. Those pages which appear to be of interest can then be printed on a suitable printer.